ITR: Collaborative Research: A Multi-Level Approach to Power-Efficient Opto-Electronic Interconnection Networks

Abstract:
Interconnection network fabrics are becoming an ever-more critical
communication backbone of many digital systems, providing the means for
systems to scale up in capacity. As these systems become
power-constrained, networks stand to be the weakest link, unless there
is a shift from prior performance-driven approaches to one that focuses
on the power efficiency of networks.

This project takes a multi-level approach to power-efficient interconnection
networks that synergistically bridges research in circuits, architecture
and software, providing a complete solution that will make power-aware
network fabrics a reality. Research into novel low-power circuit
techniques develops basic network building blocks for new
power-efficient network architecture designs. New link and switch
mechanisms uncovered at the circuit-level are leveraged for
run-time architectural tradeoffs in network power and performance.
Higher up in the hierarchy, the software level closest to users
analyzes and factors in user power-performance requirements.

This research targets a diverse range of systems -- (1) both
general-purpose and embedded systems; (2) both electrical and optical
networking technologies, seeking to determine the optimal choice between
optical versus electrical interconnection at each level in the network
hierarchy from a power perspective; (3) from tiny on-chip networks to
data center-wide chassis-to-chassis networks.

The research is integrated into the education curriculum,
through existing and new graduate courses, and in undergraduate research
programs. The project seeks to further broaden the participation of
underrepresented groups in research activities. As a pioneering effort in
power-efficient interconnection networks, the project seeks to
facilitate future research and education in this area through the
release of simulation tools and other results.